SBIR Phase I: Out-of-Season Spawning Technologies to Double Yellow Perch Fingerling Production

This Small Business Innovation Research (SBIR) Phase I project is to develop a reliable method to spawn yellow perch out-of-season, thereby allowing for the production of two crops of fingerlings per year. Photothermal and hormonal methodologies will be used to induce out-of-season spawning. It is anticipated that the technology developed during this project will lead to the doubling of annual fingerling production from existing farms. The greater availability of fingerlings should markedly reduce their cost, and translate into greater profits for growout producers.

The commercial application of this project is in the area of aquaculture.